Conference on the Representation Theory of p-adic Groups

Support is being provided for a conference on the representation
theory of p-adic groups that will take place at the University of Iowa
from October 19, 2006 to October, 22, 2006. Professor David
Manderscheid, Principal Investigator on this grant and Chair of the
Department of Mathematics at the University of Iowa, is the local
organizer for the conference. The Scientific Committee for the
conference consists of Prof. Colin Bushnell (Kings College, University
of London), Prof. Guy Henniart (University of Paris - Orsay), Prof.
Freydoon Shahidi (Purdue University) and Prof. Manderscheid. The
conference will focus on the recent developments in the representation
theory of p-adic groups that are arithmetic in nature. In particular
the conference will focus on the use of the theory of types and covers
due to Bushnell and Kutzko.

The conference is particularly timely as the study of the
representation theory of p-adic groups has proved critical in the
solution of important problems in number theory through what is called
the Langlands Program. These results included the proof of Fermat's
Last Theorem and, more recently, the proof of the Local Langlands
Conjecture for the general linear group. In awarding support for
conference attendance, preference will be given to graduate students
and recent Ph.D.'s. Approximately seventy mathematicians will attend
the conference. The conference will attract national and international
attention and it will help set the research agenda for the field.